Research Linkages Between Faculty at Predominantly Undergraduate Institutions and NSF-Funded Materials Research Faculty

9704719 Stevens This grant is one of this year's awards by the Division of Materials Research (DMR) to integrate research and education. It is cofunded by the Mathematical and Physical Sciences directorate's Office for Multidisciplinary Activities. In particular, this grant establishes a resource center for information on the availability of research opportunities for faculty in predominantly undergraduate institutions with DMR supported grantees. The Council on Undergraduate Research has developed databases of research activity and interests of departments and individual faculty members at undergraduate institutions under its National Information Center on Undergraduate Research. The grant will help foster exploratory and reciprocal site visits to identify topics of mutual interest which can then form the basis of Research Opportunity Awards. The grant will help in intellectual growth of faculty at undergraduate institutions and generate research opportunities for undergraduate students in the general area of Materials Research. %%% This grant from the Division of Materials Research is one of the first awarded in its attempt to integrate research and education. It is also cosponsored by the Office of Multidisciplinary Activities of the Mathematical and Physical Sciences Directorate. The grant will help in intellectual growth of faculty at undergraduate institutions and generate research opportunities for undergraduate students in the general area of Materials Research. ***